Investing in Multidisciplinary University Activities through Hawaii EPSCoR

The University of Hawaii has proposed a plan for Research
Infrastructure Improvement (RII) with the overarching theme of
"Biodiversity in an Integrated Environment". The project involves the
collaboration of the University of Hawaii campuses at Manoa and Hilo.
The effort will be directed at three research thrust areas that are
consistent with the state's commitment to a research agenda that
targets responsible stewardship of its island ecosystems: evolutionary
genetics, ecosystems, and information technology for environmental
research. The research agenda will focus on Hawaii's native and
introduced invasive species and consider the impact of human activities
on ecosystem functionality and biological diversity. Hawaii
investigators will use new molecular and technical approaches to study
timely and substantive environmental research questions. A partnership
with Kamehameha Schools will enable researchers, educators and students
access to land of tremendous diversity for enriched research and
educational experiences. An Environmental Information Technology
Research Network will be established to store and retrieve spacial
data that can be used to model ecosystem processes throughout the
Hawaiian Islands and serve as a central clearinghouse for biological
resource datasets.

Hawaii's RII effort will strengthen and increase interactions and
collaborations among researchers within the state as well as with US
mainland researchers and integrate research in biodiversity with
educational and outreach activities. K-12 students and teachers will
interact with university researchers in field work designed to increase
math and science interest and learning in Hawaii's youth, particularly
Native Hawaiian students. Infrastructure support will also include
funding of faculty and student travel, start-up funding for new
faculty, "seed funding' to promote competitive collaborations among
investigators and support for research experiences of community college
students.